Long and Medium-Term Research: Inference in Seismological Investigations of Subducted Lithosphere

Long & Medium-Term Research: Inference in Seismological Investigations of Subducted Lithosphere This award is under the Long and Medium-Term Research at Foreign Centers of Excellence Program, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. R. Jay Pulliam of the University of California, Berkeley to the University of Utrecht to work with Dr. Roel Snieder. Their proposed research is in two parts. First, in the context of traditional "model-based"imaging techniques, they propose to incorporate the most accurate and extensive information that exists in order to perform a joint 3-D nonlinear tomographic inversion for the Tonga subduction zone. They will use multiple P and S phases to determine both P and S velocities beneath the Tonga subduction zone in an effort to constrain the maximum depth to which velocity anomolies associated with the subducted lithosphere extend into the mantle. The inversion algorithm and data coverage would be explored in conjunction with controlled inversions of synthetic data produced with real ray coverage. However, "model-based" approaches to seismic imaging do not allow the rigorous testing of geophysical hypotheses. Statistical techniques must be developed. The second part of the research is directed toward developing methods which will provide them with uncertainty information about heterogeneities imaged by nonlinear travel time tomography. The results will allow them to make statistically-sound inferences about Earth structure and therefore to address more rigorously important questions regarding the fate of subducted lithosphere: whether slabs commonly extend through the 670 km discontinuity, whether they become detached from slabs at the surface and, ultimately, whether the upper and lower mantle are mixed together. The award recommendation provides funds to cover international travel and a stipend for twelve months.